Meeting for Research, Evaluation and Communication- Principal Investigators and Contractors

The Directorate for Education and Human Resources Programs (EHR) of the American Association for the Advancement of Science (AAAS) proposes to organize and facilitate the National Science Foundation's (NSF) Research, Evaluation and Communication (REC) Principal Investigators and Contractors' Meeting to be held October 27-28, 2003. AAAS will work cooperatively with NSF's Division of Research, Evaluation and Communication to organize this one and one-half-day meeting. AAAS/EHR will: (1) develop the agenda in cooperation with NSF staff; (2) host the approximately 250-member PI/PD meeting; (3) oversee all meeting logistics; (4) assemble "nuggets" from REC PIs; (5) organize a post-meeting discussion with NSF staff to interpret findings from discussions and presentations and prepare a brief report of important ideas that emerge from the meeting and develop a set of research and evaluation questions related to issues of importance both to the NSF Education and Human Resources Directorate and its grantees.